Hands-On Geometry and Energy Traveling Exhibits

The Ann Arbor Hands-On Museum proposes to design and construct a traveling exhibit on energy. The proposed exhibit will have two goals: one, to produce an imaginative exhibit that will stimulate interest and cognitive growth in understanding about geometry; two, to develop a related education program that will reach out to underserved audiences in Michigan and beyond, including minorities, children and citizens who live far from science centers, and audiences of small- and medium-sized science centers and children's museums in the state.